Engineering and Technical Planning for the Interim Interagency NREN

Mr. Robert Rosenthal, Manager of NIST's Protocol Security Group,has proposed to provide 1/2 professional person year effort of engineering and technical advice to NSF's Division of NetworkingResearch and Communications Infrastructure. This effort would be applied to areas relevant to NREN that include (but not limited to) defac to and official standards and processes, network and relevant host based security, naming and addressing, routing, acceptable use policies and how they may be implemented via protocols, accelerating the privatization of commodity network services via well structured networks and protocol support, and peering at inter network exchange points. Mr. Rosenthal would join two other highly respected and competent individuals who currently perform the same function as members of the NSF Engineering Group (NEG), which reports to Bob Aiken, the DNCRI NREN program manager.